Redesigning the Introductory-Level Physics Course for Non-Science Majors

The Brooklyn Campus of Long Island University is in downtown Brooklyn and serves mostly commuting students who live in the area. Nearly all undergraduates are first generation college students; 59% are of African-American and Hispanic origin; and 70% are women. Many are unprepared to succeed in the sciences. Our project is to redesign the introductory level physics course taken by most of the non- science majors, a population that includes a large number of education majors who are teachers in the New York Metropolitan area. The course will utilize current methodologies that support student-centered learning journal writing, ethnography, collaborative learning, and study skills. The project will have these objectives: 1) preparation of material for a student-centered, active learning course; 2) preparation of faculty to teach the course; and 3) enhancement of students' academic and personal self-confidence as future scientists, educators, and citizens. The course is being developed with the participation of NYC Alliance, an NSF-funded Alliance for Minority Participation (CAMP) Program. It will be disseminated to serve as a model and resource for other colleges.